1995 Gordon Research Conference on the Impact of New Technologies on Science Education; IRSEE, Germany; September 25-30, 1994

9412485 Fackler This award supports the participation of twenty U.S. scientists and science educators in the first Gordon Conference on Science Education to be held in Europe. The subject is the impact of new technologies on science education, with particular reference to the visualization of concepts and molecular structures. The meeting is co-organized by Professors John Fackler of Texas A & M University and W. Gerhard Pohl of Linz, Austria. It will take place in late September, 1994, at the Swabian Conference Center in Irsee, Germany, with European participants significantly outnumbering American participants. The conference program was organized along the very successful Gordon Research Conference procedures. This includes bringing together research scientists and educators for critical examination of various initiatives in science education, in an atmosphere that is conducive to generating joint ventures between research scientists and educators. Sharing of ideas world wide is as important in science education as it is in scientific research. The U.S. has no monopoly on effective methodologies. The European site of the meeting was chosen with the specific objective of introducing U.S. participants to the variety of novel approaches being taken by European science educators. The U.S. participants are expected to gain many new contacts and ideas for strengthening programs in science education in the U.S. ***